Noncommutative geometry and quantum symmetry

Abstract
Moscovici

The goal of this project is to refine and further develop the
new insights and tools for the treatment of quantum symmetry
in noncommutative geometry which emerged from the recent joint work
of A. Connes and the PI, in order to expand their range of
applications to transverse differential geometry, the algebraic
and the analytic theory of quantum groups, as well as to quantum
field theory. The main new insight, that symmetry in Diff-equivariant
geometry comes organized in the form of specific Hopf algebras,
will be investigated for all geometrically interesting classes of
transverse geometries and then employed to settle the corresponding
transverse index problem. The main new tool, provided by the
adaptation of cyclic cohomology to Hopf algebras, will be applied
to obtain new cohomological invariants of quantum groups and of their
actions.

The proposed work is motivated by the necessity of developing
appropriate mathematical tools for handling a wealth of examples
of non-classical spaces, arising in many areas of mathematics and physics,
whose common feature is that their measurable local parameters behave
like infinite-dimensional matrices rather than numbers. This requires a
considerable stretching and rethinking of the existing geometric
techniques and led to the development of noncomutative geometry. The
emphasis of the present project is on the the treatment of such
noncommutative spaces in the presence of non-classical symmetries.